PYI: Complexity Uncertainty, Information, and Organization in Control System Design for Modern Engineering Systems

The overall goal of our research program will be to make progress toward the development of control system design methodologies which support the following control system design paradigm: Minimize control system complexity subject to the achievement of a specified control accuracy in the face of system/environmental uncertainty. A key focus of this research program will be the role and use of information and organization for the achievement of this paradigm, as the nature and use of available information, and in particular how it is organized, largely determine how effectively the control system reduces the effects of system/environmental uncertainty, and what level of complexity is required to do so. The task in our research program will include the development of control-oriented system identification methods. In this work we have developed methods for identification H-infinity; in other words, the identified model converges to the unknown system in the H-infinity norm, and at each step an explicit bound is given on the H-infinity norm of the error between the identified model and the unknown system. This bound is precisely the uncertainty specification required in most currently popular approaches to robust control system design. Applications feedback will be essential for the achievement of our immediate goal of better bridging the gap that currently exists between the areas of robust control and system identification. For this purpose we have in mind an important application; namely, active control of fan/compressor stall phenomena in advanced variable-cycle aircraft gas turbine engines.